Tree Algorithms for Controlling Large Parallel Computers

This is a grant for research into ways that allow reliable and efficient control of large parallel systems containing thousands or millions of component computers. Candidate algorithms will be analysed with a combination of the two techniques: direct simulation of as many as two thousand computer nodes to explore major factors in algorithm performance and mathematical analysis to give precise formulae for scaling results onto even larger systems. Expected benefits from this research include: (1) creation of distributed tree algorithms to control global resources in large systems; (2) creation and evaluation of partially distributed algorithms tailored for efficient execution on large parallel processing systems by locally using shared cluster memory and very globally using slower communications to exchange data; (3) comparison of major algorithms for performing key tasks in large parallel systems, for example, to determine at what systems size asynchronous gossip techniques for keeping distributed copies of system databses weakly consistent become more efficient than synchronous mehtods of assuring mutual consistency of all copies before any changes are made; and (4) generally establishing and confirming design techniques for operating systems for large parallel computers, especially as they differ from the control techniques needed for small systems.